Ionic Charges and Hydrogen Bonding in Polymer Systems

The purpose of this work is to present a new model for electrolyte solutions by adding contributions for long-range charge-charge interactions (Henderson, 1983) to Perturbed-Anisotropic-Chain theory (PACT) (Vimalchand, 1985, 1986) which takes short-range molecule- molecule interactions into account. Since dielectric constants used in the primitive model are only for solvation effects caused by charge-molecule interactions near ions, additional terms for the interactions of ions with molecules in the bulk of the solution (i.e. those not solvated) are derived and included in the theory as well. Electrolyte Solutions, especially aqueous electrolyte solutions, are common in the environment, living organisms, and industrial processes. Their thermodynamic properties play an important role in separation, fermentation and purification processes in numerous industries. Therefore, interest in the prediction of thermodynamic properties of electrolyte solutions has grown over the past decade.